Imaging Plate Equipment for Crystallographic Data Collection

9305739 Foxman, Bruce This award from the Chemistry Research Instrumentation Program will assist the Department of Chemistry at Brandeis University in the purchase of an x-ray diffractometer and an associated data analysis system. This new instrumentation will enhance greatly research in a number of areas including the following: 1) Solid state reactions of metal complexes, 2) Sterically encumbered ligands, 3) The conformational analysis of type I and type II SYMBOL 98 \f "Symbol" -turns in model polypeptides, 4) Ion pair structures, 5) Applications of organometallic chemistry to materials science and organic synthesis. From molecular wires to enantioselective reagents, 6) Development of new synthetic methods and their application to total synthesis. %%% The x-ray diffractometer is used to make accurate and precise measurements of the full three-dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of that molecule relative to the neighboring molecules. *** s t ABSTRACT 9308086Coppens, Philipry at SUNY Buffalo in the purchase of Imaging Plate Equipment for Crystallographic Data Collection. 1) The mapping of charge densities in crystals, 2) Use of imaging plates in resonance scattering synchrotron radiation, 3) Study of composite structures of highly-conducting mineralo-organic salts, 4) Crystallographic studies of icosahedral quasicrystals, 5) X-ray structure determination of fullerene derivatives, 6) Develop ment of software f ` a v w # % , 7 ; b < = > ? @ A B C D E F G H I J K L M N O P Q R S T U V W X Y Z \ ^ _ ` a b c d e f g h k l m n o p q r s t u v w x y z { | } ~ ^ ı * > % k R T u P p, P p, P p, P p, P p, P p, P F or the analysis of imaging plate x-ray data. The time required to collect a set of x-ray diffraction data sets is often the limiting factor in a diffraction experiment. Reduction in data collection time by an order of magnitude or more is possible with area detectors. This will greatly facilitate the work summarized above. ı Õ d $ % & ' ( ) * + , - . / 0 1 2 3 4 5 6 7 8 9 : ; < = > ? @ A B C D E F G H I J K L M N O P T U Z \ ^ _ ` a b c d e f g h i j k l m n o p q r s t u v w x y z { `{ | } ~ 9 u ( Z ı % a p, p, p, p, p, p, p, p, p, p, p, p, p, { u u 3 Times New Roman Symbol & Arial 1 Courier x $ Z \ ! " % & ' ( ) * + , - . / 0 1 2 3 4 5 6 7 8 9 : ; < = > ? @ A B C D E F G H I J K L M N O P Q R S T U V W X Y Z \ ^ a b c d e f g h i j k l m n o p q r s t u v w x y z { | } ~ ı Õ ! " # $ % & ' T _ ` j x y % , 7 ; b n < = > ? @ A B C D E F G H I J K L M N O P Q R S T U V W X Y Z \ ^ _ ` a b c d e f g h k l m n o p q r s t u v w x y z { | } ~